Research Experiences for Undergraduates in Chemistry at the University of Missouri-St. Louis

This Research Experiences for Undergraduates (REU) Site project is in the field of chemistry. For three summers beginning in 1992, nine undergraduate students will spend ten weeks engaged in basic research under the direction of the faculty members in the Chemistry Department. The Department will fund four additional students, two earmarked for ethnic minorities and two for community college students. The central goal of the program is to expose students to the full spectrum of the "scientific enterprise." Accordingly, the program contains five major components: (1) research projects; (2) a science seminar series; (3) communication; (4) career mentoring; and (5) weekly meetings of students to discuss their research. Each of these components is designed to address a particular aspect of the entire scientific enterprise.